SGER: Hurricane Effects on Beach-to-Reef Facies

0000894
Walker

Quantitative assessment of biotic and facies relationships resulting from a Category 4 hurricane in three beach-to-reef settings on San Salvador Island, Bahamas, will examine out-of-habitat transport of biotic hardparts, the preservational quality of hardparts, and sedimentary fabrics in association with biotic distributions. This research will provide a quantitative checklist of storm-related features for the refined interpretation of fossil